PREEVENTS Track 2: Collaborative Research: Geomorphic Versus Climatic Drivers of Changing Coastal Flood Risk

Coastal flooding is one of the most dangerous and damaging natural hazards that societies face, and coastal development and climate change are causing a dramatic rise in vulnerability. Since the 19th century, estuary channels have typically been deepened and widened by a factor of two or three, harbor entrances have been deepened and streamlined, and a large proportion of wetlands have been filled over and replaced with neighborhoods. Such geomorphic changes increase flood risk by reducing natural resistance to storm surge and tides. Similarly, sea level rise and climate-modulated variations in storm characteristics such as intensity, size and track path also alter flood risk. The overarching goal of the proposed research project is to reveal and contrast the mechanisms by which these geomorphic and climatic changes alter flood risk. This goal will be met using a combination of computational modeling, historical climate and storm surge data analysis, and theory-based synthesis. The study will provide support for a postdoctoral research associate and several graduate students and undergraduates, including underrepresented groups. It will improve the well-being of communities within urbanized harbors and estuaries by highlighting coastal development practices that can worsen coastal flooding. The project plan increases scientific literacy and engagement, and connects the research to applications through interactions with local stakeholders and governments, as well as the US Geological Survey and the US Army Corps of Engineers.

The project will improve the understanding and separation of climatic and geomorphic factors in coastal flooding through several elements of novel research and technical innovation. The investigators will use a unique tide-gauge data set that extends back to the 19th century together with contemporary, retrospective, and idealized hydrodynamic models to elucidate system sensitivities. Well-known, simplified insights into tidal dynamics will be tested for storm surge, then used to help interpret how altered local topography, bathymetry and wetland area have changed frictional damping and long-wave mechanics. A combined analysis of climate, storm characteristics, and morphologic change will identify the modes and pathways through which climate variability and bathymetric change modulate storms surges. Advanced non-stationary univariate and multivariate statistical models will be developed and employed to incorporate these changes and assess how statistical properties relevant for coastal design and risk assessments respond. A flood model inter-comparison workshop will help quantify relevant modeling sensitivities, which will help to improve estuary and floodplain predictions for the academic and operational forecasting community.